Fine-Scale Magnetic Structure of the Mid-Atlantic Ridge

The main goal of this proposal is to understand the controls on the fine-scale magnetic structure of ocean crust formed at slow- spreading ridges. A high quality data set consisting of SeaBeam bathymetry, sea surface magnetic and gravity data has been acquired over the Mid-Atlantic Ridge from 24 degrees to 30 degrees 30 minutes north. The principle investigators will investigate and analyze anaoalies in these data to test the hypothesis that the fine-scale magnetic structure is a direct result of volcanism, tectonism and alteration processes that form and modify the ocean crust.